Context Effects on Teaching for Understanding in High SchoolMathematics and Science

The proposed research will investigate the policy contexts and organizational structures within schools that influence mathematics and science teaching, and in turn, student learning. National goals for science and mathematics education call for major improvements in the level of student understanding and problem solving ability. Two strategies for achieving these goals, as envisioned by many, are local school redesign and national student assessments. The proposed research will help fill important gaps in the knowledge required to advance these strategies toward improved math and science teaching in secondary schools. There are two components of the research. The first, analyzes context effects on teaching and corrects a bias in prior studies of educational effectiveness in favor of the school as the sole unit of analysis. The other component seeks to improve upon the NEL:88 program for assessing desired learning outcomes, especially in relation to teacher context effects on student understanding. This component will develop subscales for NELS tests that help distinguish teaching effects on different kinds of student learning. Together these components, which build on prior work of the researcher, promise new knowledge and recommended strategies to support systemic reform of U.S. science and mathematics education.